Reference Free Part Encapsulation: A New Universal Fixturing Technology

This research project seeks to develop a novel reference-free part encapsulation fixturing technology by extending and further developing the existing phase-change based fixturing technologies. Several key research issues are addressed for successful development and implementation of this new fixturing technology. First, analyses and experiments will be performed for a better understanding of the mechanical and metallurgical behavior of the filler block which fixes the part. Second, technologies for dispensing the filler material, controlling temperatures in casting and handling the filler block will be developed. Third, the developed technologies will be assembled for automating the machining of general three-dimensional components that require multiple setups. The reference-free part encapsulation technology presents some novelty. There exist many fundamental research issues which need to be addressed before this technology can be successfully adopted by industry. This investigation will address these fundamental issues in the development of this technology.